Infinite-Dimensional Eigenvalue Problems

Lee
0209931
The investigator and his colleagues develop numerical
methods for eigenvalue problems in infinite-dimensional spaces.
At the heart of the effort is the recently developed hybrid
diagonalization/Monte Carlo approach, which they feel has led to
significant advances in the computational treatment of the
general low energy eigenvalue problem. They study the many
unresolved mathematical issues related to approximate methods for
low energy eigenvalues and eigenvectors in infinite-dimensional
spaces. Among other things, the collaborators rigorously analyze
the accuracy of the diagonalization/Monte Carlo approach, study
the relation between eigenvalue distribution and eigenvector
structure, generalize the approach to non-Hermitian matrices, and
improve the computational treatment of clustered eigenvalues. In
addition to studying the underlying mathematics, the
investigators also begin production on a public domain library
for infinite-dimensional eigenvalue problems.
Eigenvalue problems play a crucial role in many diverse
branches of 21st-century science and engineering. This includes
for example the electronic properties of nanoscale structures and
new materials; the interactions of protons and neutrons in heavy
nuclei; and gene similarity database studies in bioinformatics.
The eigenvalue problem consists of finding certain attributes of
a given square matrix, M. Specifically one is seeking column
vectors, v, such that M times v is again proportional to v. The
proportionality constant is called an eigenvalue of M and v is
the corresponding eigenvector. In this project computational
experts in computer science, applied mathematics, and physics
collaborate to investigate large-dimensional matrix eigenvalue
problems. The collaborators study the underlying mathematical
issues related to this problem and develop a public domain
library that can be applied to matrices of infinite dimension.
The extension to infinite dimensions is crucial for many
applications, particularly those in quantum physics and
chemistry, but the existence of this library will impact many
other areas that feature large-dimensional eigenvalue problems
and are currently intractable with existing methods.